Workshop: Earthquake Engineering and Structural Control Experimentation

A workshop is being organized in the Washington, D.C., metropolitan area to introduce
members of the local research community who are interested in earthquake engineering
and dynamic system control to the newly-built 6-DOF shake table at the Virginia Campus
of The George Washington University. The Washington metro area is home to a number
of institutions of higher education, including The George Washington University, the
University of Maryland at College Park, Johns Hopkins University and Catholic
University, and to several national laboratories, including the National Institute of
Standards and Technology, the Turner Fairbanks Laboratory, the Naval Research
Laboratory, and NASA Goddard Research Center. Researchers at these institutions and
laboratories are involved in work.such as earthquake engineering, structural damping
and position control, and vibration control.that could benefit from unique experimental
capabilities of the shake table.
Each Workshop participant will present a 15-minute talk suggesting possible research
that he or she could do on the shake table. Each talk will be followed by a brief
discussion among all participants about the merits of, and possible improvements to, the
proposed idea. The Workshop is designed to allow the group of participating researchers
a maximally, mutually inspiring, intellectual experience.
Intellectual Merit: A number of new research ideas for use of the newly-installed shake
table will be introduced at the workshop. Topics will include (1) experimental
verifications of analytical prediction, (2) active and semi-active structural control, (3)
novel sensor technologies, and (4) dynamic and pseudo-dynamic concurrent testing.
These discussions are expected to lead participating researchers to individual as well as
collaborative research projects in the areas of earthquake engineering and structural
dynamics.
Broader Impact: One of the most effective forums for exploring the capabilities of the
newly built shake table and challenging the personnel associated with the shake table
facility is through a workshop on just these topics. The direct impact of the proposed
Workshop will be to stimulate use of this modern and unique regional facility, which
provides capabilities of critical interest to the research community. Other benefits to
come from the workshop include (1) the pioneering of networking procedures for
addition of sites to the Network for Earthquake Engineering Simulation (NEES) grid, and
(2) creating synergy among researchers of the earthquake engineering community and
those from the structural dynamics community. Research to be conducted will involve
both undergraduate and graduate student participation. The results of the workshop will
be made available through the Internet. This information will be advertised in venues
such as the NEES Consortium, the National Science Foundation, and the Earthquake
Engineering Research Council. To further diversify the thinking going on at the
Workshop, we will encourage the participation of under-represented groups whenever
possible.